Development of an Automated Extraction System for Small Volume (Pore Water) S13C Samples

This award will support the development and construction of an automated system to extract dissolved inorganic carbon from porewater and other small-volume samples, and collect it for stable isotope analysis.